ADORE -- A Framework for Adaptive Object Code Re-optimization

The research focuses on the design and implementation of a framework,
called the ADaptive Object RE-optimization (ADORE) system, to evaluate
the effectiveness of dynamic binary re-optimization, and to study the
interaction between architecture/micro-architecture and a dynamic
binary re-optimizer. The topics studied include: efficient profiling
techniques; runtime hot region selection and formation; light-weight
runtime optimizations; code patching and region linking techniques;
architectural and micro-architectural support for dynamic binary
optimization; and runtime specialization and value profiling.
The first implementation of the ADORE system will be based on
two different implementations of the IA-64 architecture, the
Itanium and the McKinley. The performance of application code
optimized for Itanium will be tested on McKinley using the
ADORE system.